Optimization of the Electrical and Dielectric Properties of Hydrogen-Bonded Solids

9902882
Sossina
This project aims to understand the structural and chemical basis for the electrical properties and phase transitions in alkali and alkaline earth solid acid sulfates, selenates, and phosphates. Because there exist numerous structure types of these compounds, all exhibiting varying extent and type of hydrogen bonding, and because they can be obtained as large single crystals from aqueous solutions, the systems will serve as excellent model compounds for the study of proton conductivity and ferroelectric phase transitions. Characterization tools to be used include x-ray and neutron diffraction for structural studies, together infrared, thermal analysis, conductivity and dielectric measurements.
%%%
Structure-property studies aimed at optimizing and understanding the fundamental behavior of superprotonic conductors are directly related to a number of materials applications areas that include hydrogen and water sensors, fuel and steam cells, and high energy density batteries. Also, ferroelectrics and related piezoelectrics and electro-optical materials, are used in a wide range of electronic devices from pressure sensors to optical shutters and modulators.